Turbulent Transport and Entrainment in Reacting Complex Flows

Non-intrusive Rayleigh scattering laser anemometry and a modular flow test facility are used systematically to explore turbulent transport and entrainment in a modular flow fixture that builds sequentially in geometrical complexity from a simple free jet to a complex flow reactor. Secondary goals address the evaluation of fine-wire thermocouple performance and the development of appropriate methods to obtain complete two-dimensional field information from sparse, point measurements. In the proposed work, the test matrix will be concluded with a study of the central jet surrounded by a swirling coannular jet, up to and including the complex flow model reactor. The program proposed is directed to an enhanced understanding of turbulent mixing in recirculating combusting flows, dominated by a high degree of swirl. The practical significance of the proposed research is that the flows selected for study are found in the majority of continuous combustion systems, such as gas turbine combustors, boilers, furnaces, and incinerators. The understanding of the turbulent mixing associated with these flows is timely in view of the growing restrictions in operation such as fuel consumption, emissions, noise, and fuel quality.